Travel and Subsistence Support for Professor Haifan Xiang

This project is to support international and travel within the U.S. and living expenses for Professor Haifan Xiang for technical consultations and cooperation on the following research topics: (1) evaluation of structural response under severe earthquake and wind excitation, (2) active and passive controls of structures under severe earthquake and wind excitations. Professor Haifan Xiang is Vice Dean of the College of Structural Engineering, and Director of the Institute of Bridge Design and Research at Tongjie University, Shanghai, China. He has been a faculty member of Tongjie since 1958, rising through various academic ranks to a Ph.D. Supervisory Professor, the highest distinction conferred by the Chinese Ministry of Education. He was awarded the Certificate of State Expert in Bridge Engineering in 1986. He is an Executive Deputy Director of the Chinese National Laboratory for Natural Disaster Prevention, Vice President of the Chinese Wind Engineering Society, a Director on the Executive Board of the Chinese Society of Civil Engineers, and General Secretary of the Institute of Bridge and Structural Engineering of Chinese Society of Civil Engineers. He led the research team at Tongjie that investigated the wind resistance for nearly all the recently constructed long-span bridges in China, including Nanpu Cable-Stayed Bridge, Yanpu Cable-Stayed Bridge, Wuhan Yangtze River Bridge, Jiangyin Yangtze River Bridge, Shantou Bay Bridge, and Jiujiang Yangtze River Bridge. He is currently a consultant for the designs of three suspension bridges and five cable-stayed bridges in China. Professor Xian will visit the United States for five weeks, with approximately four weeks at the Florida Atlantic University, and the remaining week at the National Center for Earthquake Engineering Research and the University of California at Irvine. The research programs in the above- mentioned institutions will be benefited greatly from Professor Xiang's consultation and cooperation.